Estimating Conditional Variances and Covariances: Measurement Accuracy and Implications for Asset Pricing and Portfolio Choice

Most asset pricing theories relate expected returns on assets to their conditional variances and covariances. An enormous literature in empirical finance has documented that these conditional moments change over time. Practical experience as in the 1929 and 1987 stock market crashes reinforces this conclusion. Unfortunately, conditional covariances are not directly observable. In tests of asset pricing theories, researchers must use estimates of conditional second moments. Similarly, market participants use estimates of conditional variances and covariances in hedging, option pricing, and in many other aspects of portfolio selection. This projects addresses the following important questions: How accurate are the estimated variances and covariances? How can they be estimated more accurately? How severely do the inevitable measurement errors affect portfolio selection and tests of asset pricing theories? Researchers doing empirical work in finance have adopted many strategies for accommodating changes in conditional variances and covariances. Among the popular strategies are: (1) chopping the available data into short blocks of time and assuming homoskedasticity within the blocks, (b) one-sided rolling regressions, in which only data from, say, the preceding five year period is used to estimate the conditional covariance of returns at a given date, (c) two-sided rolling regressions, in which covariances are estimated for each date using, say, five years of lags and five years of leads, and (d) Autoregressive Conditional Heteroscedatic (ARCH) models. The choice between these methods has traditionally been ad hoc, since no theory has been available to compare their relative efficiency in settings. This project addresses this problem by developing continuous record asymptotic approximations for the measurement errors when methods (a) through (d) are used.